Metapopulation Dynamics of the New England Cobble Beach Plant Community

The goal of this study is to determine how characteristics of the landscape and species life history traits (i.e., annuals vs. perennials and rare vs. common species) interact to determine the large-scale (i.e., 10 km to 100 km) distribution and dynamics of plant populations. Factors such as habitat patch size and the distance from the nearest neighboring population are thought to control the probabilities of population extinction and the subsequent re-colonization of a vacant location. Very few field studies have been performed to test these predictions. This investigation will focus on coastal wetland plants in Narragansett Bay, RI, USA. GPS technologies will be used to map out the location of wetland habitats and yearly surveys of 350 habitat patches within a 20 x 30 km study area will document population extinction and patch re-colonization by 12 plant species.

Understanding how landscape characteristics affect the large-scale dynamics of populations is fundamental to biological conservation. For example, such information can be used to optimally design marine reserves, ensuring that networks of protected areas are large enough and close enough to each other to maintain stable populations of rare and endangered species. This study will also enable resource managers to detect and mitigate the effects of environmental impacts to this and other wetland habitats.